The Chemical and Biological Processes Controlling the Bioaccumulation of Organic Chemicals by Phytoplankton

ABSTRACT

This work will assess the processes that control bioaccumulation of persistent organic pollutants (POP's) in phytoplankton. The study will focus on polychlorinated-biphenyls (PCB's) which is a common organic pollutant. Lab studies would clarify the mechanism of uptake for POPs into phytoplankton cells, and incorporate the findings into a previously developed bioaccumulation model. The findings will be validated against previously collected field data.

This proposal was submitted in response to the Environmental Geochemistry and Biogeochemistry solicitation NSF 99-9, and is being funded jointly be the Division of Ocean Science, and Molecular and Cellular Biosciences.